Post-Bifurcation Behavior of Wrinkles in Sheet Metal Forming

Sheet metal forming is a basic manufacturing process for the mass production of numerous commercial products. In sheet metal forming, wrinkling is a major type of failure which has been recognized for a long time but remains to be solved. Wrinkling may occur in any stage of a forming process including the springback stage. The acceptance of a sheet metal product depends on the final physical state which may be determined by a post-birfurcation analysis and a springback analysis. A post-bifurcation analysis describes the growth or decay of wrinkles after their initiation. This research will attempt to develop a general solution of the wrinkling problem including the post-bifurcation behavior of wrinkles.